RI: Small: Exploratory Data Analysis for Speech Recognition

Hidden Markov models (HMMs) have been successfully applied to automatic
speech recognition for more than 35 years even though a key HMM
assumption - the statistical independence of frames - is obviously
violated by speech data. In fact, this data/model mismatch has inspired
many attempts to modify or replace HMMs with alternative models that are
better able to take into account the statistical dependence of frames.
The scientific goal of this work is to discover predictable regions of
statistical dependence in speech data and quantify their effect on
HMM-based recognition accuracy. In contrast to previous studies of
statistical dependency, this research uses the HMM to explore its
departure from the data via exploratory data analysis (EDA). The
methodology is to first analyze the data and its fit to the model,
searching for regions of predictable statistical dependence - model/data
mismatch. EDA is used again to develop simple models of the effect of
the predictable mismatch on recognition accuracy. A key piece of this
analysis is the development and use of graphical tools to visualize the
statistical dependency, the recognition errors, and their relationship.
The results of this research will provide important clues for the design
of HMM generalizations. The analysis methodology is central to the field
of statistics, but is rarely used in speech recognition research.
Graduate students working on this project will learn its utility and
how to use it on other problems. Open source versions of the software
developed will be made available for free downloading.